Space-Related Research within the Department of Mechanical and Aerospace Engineering at Utah State University

This award provides funding to Utah State University (USU), for a three-year REU Site Program in Space-Related Research, under the direction of Dr. Robert E. Spall. During each summer, 8 undergraduate students will participate in an intensive 10-week research experience. The primary compnent of the project requires students to complete a space-related research project (or component of a larger, ongoing project) primarily at the USU Space Dynamics Laboratory, under the direction of a faculty advisor and a graduate student mentor. Students will also participate in weekly seminars with topics to include aerospace research, technical writing and oral presentations, and graduate school. The program will culminate with attendance at the AIAA/USU Annual Small Satellite Conference at which the students will have an opportunity to present the results of their work.